Quantitative Imaging and Analysis of Grain-Boundary Segregation

9972670
Williams

This research explores why grain boundary segregation results in intergranular failure in some cases, but in other cases enhances the cohesive strength of the boundary. Recent advances in electron energy-loss spectrometry (EELS) allow changes in the electronic structure of the atoms in the vicinity of grain boundaries to be studied. Composition can be examined at the nanometer level and related to the presence or absence of segregation. Studies of several segregating systems (Cu-Bi, Cu-Sb, Cu-Ag, and Ni-S) show a consistent trend relating the changes in the electron energy-loss spectrum to changes in the electronic structure of atoms close to the boundary. In these systems, spectrum changes are absent when there is no segregation and when the segregant does not embrittle the material. Theoretical studies are carried out to model the relationship between the changes in the electron spectrum and the changes in the bonding of the boundary atoms to the segregant. These models are tested in experimental co-segregation studies where the presence of a second element can counteract the embrittling effects of the first segregant, in a manner that is not completely understood at the present time.
%%%
The properties of engineering materials are often controlled by their grain boundaries, particularly the number of boundaries (i.e. grain size) and the chemistry of the boundaries. Because engineering materials are rarely, if ever, pure, the segregation of deliberately introduced alloying elements or of undesirable impurities can change the chemistry of the boundaries. This segregation can either enhance or detract from the properties of the material.
***